Montana Research Infrastructure Enhancement Program

93-50546 Strobel Montana Research Infrastructure Enhancement Program The State of Montana has initiated a statewide plan to improve the quality and effectiveness of its science and technology infrastructure. In a series of statewide meetings, involving hundreds of volunteers from the University System, the State, and Montana science and technology businesses, the State produced the Montana Science and Technology Policy and Plan which was followed by a detailed Action Agenda. This Plan and Action Agenda form the basis for this proposal to NSF EPSCoR. Montana proposes to support research, human resource development, and technology transfer activities to improve the state's research infrastructure and competitiveness. Because biotechnology infrastructure and human resource development are high priorities in the State Plan, four specific research teams in biotechnology will be supported (peptide receptors, plant biotechnology, microbial surface interactions, and environmentally influenced mutagenesis) and the Montana Biotechnology Center will be expanded to coordinate and promote biotechnology research statewide. Montana will also support teams of researchers in optical science/laser technology and non-linear science (mathematics), and an individual from a group under- represented in science, engineering and mathematics. All projects included in this proposal have been extensively peer reviewed by an external mail review and state panel system. A Science Enhancement Program (SEP) will be established to fund activities statewide which can contribute to the overall goals of the State Plan and Action Agenda. Start-up grants, research opportunity awards, visiting scientists, technicians, graduate students, travel, scientific conferences, technology transfer activities, and public education will be supported through the SEP on a competitive basis. All EPSCoR-supported activities will be coordinated and integrated with other NSF initiatives in Montana, including the En gineering Research Center (ERC), the Systematic Initiative in Mathematics and Science (SIMMS), and the Alliance of States Supporting Indians in Science and Technology (ASSIST), and other EPSCoR agency programs where appropriate. Interaction and collaboration with industry will be encouraged, and an aggressive education and information campaign will be supported to keep Montanans informed about the importance of science and technology in the state. The State of Montana has pledged a dollar-for-dollar match for this proposal to NSF. The NSF EPSCoR program will result in the development of two sustainable Montana Research Centers (in biotechnology and advanced materials) and in measurable improvements in the number and quality of competitive research programs statewide. As a result, Montana will attract higher quality graduate students, post-doctoral researchers, and new faculty, and will be viewed, within and without of the state, as a significant contributor to the nation's science and technology goals for the 21st century.